SBIR Phase I: Bimetallic Oxygen Reduction Catalysts for Proton Exchange Membrane Fuel Cells

The Small Business Innovation Research Phase I project focuses on development of platinum-transition metal binary catalysts supported on high area carbon for oxygen cathodes in proton exchange membrane fuel cells. In order to reduce the bulk amount of platinum in the catalyst without losing activity and improve durability under fuel cell operating conditions, different combinations of platinum-iron/platinum-cobalt supported on nitrogen enriched carbon black will be prepared, characterized, and evaluated at T/J Technologies, Inc. Performance evaluation of these materials as the oxygen reduction catalyst for fuel cells will be undertaken in parallel with thorough spectroscopic characterization to obtain structural and compositional parameters. Correlation between activity and structural properties of the binary composite catalysts obtained in this research will be used for combining high catalytic activity with good stability in Phase II efforts.